Refinement of Software Test Cases via Accumulated Knowledge

Most testing methods generate test descriptions which define the desired characteristics of the input data in a test case. A method of test refinement is pursued in which a knowledge base is used to accumulate experience about object semantics and object class/subclass relationships in a particular problem domain. Special attention is paid to those objects and relationships that experience has shown to be error-prone. Employing this knowledge to refine test cases arising from other methods increases the focus of those test cases upon error-prone aspects of the problem domain. By this means, the project improves the detection of subtle faults that would have escaped more conventional testing methods. The combination of refinement with specification-based equivalence partitioning yields a testing method called Knowledge-Driven Functional Testing (KDFT). This method is believed to be particularly interesting because the concomitant analysis of the specification may lead to early detection of specification and design errors. This project is investigating KDFT and the process of test-case refinement. In its first phase, refinement is employed in an experimental study for testing a module of avionics software. The second phase consists of a similar study applied to series of related software projects drawn from a common application domain.